Seismological Investigations of Deep Earth Structure

EAR-9909267
Shearer

The increasing availability of large numbers of high-quality digital
records from the global seismic networks has made possible a
variety of new ways to study deep Earth seismic structure. By analyzing
hundreds or thousands of seismograms, it is often possible to resolve
new features in the data, or to perform more comprehensive analyses of
problems that were previously addressed on smaller scales.
This project proposes to continue and extend analyses of global seismic datasets to resolve details of deep Earth structure. Proposed studies include: 1) analysis of upper-mantle discontinuity (410- and 660-discontinuities) amplitude variations using PP and SS precursors, 2) the use of back-projection and migration methods to better image mantle discontinuity structure (applied to SS precursors and receiver functions), 3) modeling and inversion of PKP and PP precursors to map the intensity of scattering from small-scale heterogeneity in the mantle, 4) analyses of P-wave spectra to resolve the frequency dependence and lateral variability in mantle attenuation, and 5) systematic analysis of S-to-P converted phases to identify hypothesized discontinuities in the mid-mantle related to chemical heterogeneity.